Louis Stokes Alliances for Minority Participation (LSAMO): Northeast Louis Stokes Alliance for Minority Participation

The proposal initiates a partnership to support an LSAMP Phase I alliance of institutions to increase enrollment, retention, and graduation of underrepresented minority undergraduate students in SMET. The partnership institutions are University of Massachusetts-Amherst, Northeastern University, the University of Rhode Island, and Worcester Polytechnic Institute. The goal of the alliance is to double the current SMET student enrollment by underrepresented minorities (845) in five years, and to significantly increase (toward doubling) the number of SMET degrees awarded (120 in 2000).